Improvements in Code and Dynamic Analyses of Buildings: Vibration Periods and Modal Damping Ratios

9416265 Chopra The objectives of this project are to "measure" two important properties--fundamental vibration period and modal damping ratios-of some forty buildings from their recorded motions during the Northridge earthquake and other recent earthquakes. These buildings, shaken strongly by ground motions with peak accelerations between 0.15g and 0.82g, would provide information directly relevant to earthquake resistant design of buildings in contrast to much of the existing data which are for smaller amplitudes of motion. The vibration properties will be identified from the recorded motions of the buildings using system identification procedures. These results from the Northridge earthquake and other recent earthquakes, combined with similar data available from the 1971 San Fernando earthquake, will create the most comprehensive database which can be easily updated after every major earthquake. This database will be used to evaluate and improve: (1) code formulas for estimating the fundamental vibration period used in calculating the design base shear and lateral forces; and (2) current recommendations for damping values used in dynamic analysis. The period formulas in the 1994 UBC and the 1990 SEAOC "blue book" were developed in 1975 as part of the ATC-3 project, based largely on motions of buildings recorded during the 1971 San Fernando earthquake. Similarly, the damping values used widely were originally recommended by Newmark and Hall in 1978. This project will culminate in: (1) formulas for estimating the fundamental vibration period of buildings using different materials--steel, R/C, masonry etc.--and various structural systems--moment resisting frames, shear walls etc.; and (2) recommendations for modal damping ratios for different categories of buildings, depending on response amplitude and, if appropriate, on mode number. This is a Northridge earthquake project. ***